Fundamental Concepts for Information Gathering in Sensor Networks

Wireless networks of sensors will be widely deployed in the future because they
greatly extend our ability to monitor and control the physical environment from
remote locations. One of the most important communication primitives that has
to be provided by sensor networks is information gathering: information from
the sensors has to be forwarded to a single point for evaluation. Since sensors
will exist with the ratio of thousands of nodes per user, it is impossible to
pay attention to any individual node. Hence, it is important to use
communication methods in sensor networks that are extremely simple - to allow a
verification of their correct implementation - and self-reconfiguring - to
allow automatic adjustments to changes in the sensor network or sensing tasks.
Furthermore, since sensors are simple devices with limited processing power,
storage capacity, and energy, it is important to develop routing strategies
that can support information gathering as efficiently as possible. Whereas many
heuristics have already been suggested for resource-efficient information
gathering in sensor networks, almost no rigorous theoretical work has been
performed in this area yet. Therefore, the goal of this project is to explore
fundamental concepts for self-reconfigurable and resource-efficient information
gathering in wireless sensor networks.

This project concentrates on networks of static sensors (i.e. sensors do not
move around, which is commonly the case). However, the observer may move
around. Also, connections between sensors may be available or unavailable
depending on the underlying medium access control protocol or temporary
problems such as obstacles. In addition, sensors may fail permanently due to
energy problems. To ensure that the network protocols developed in the project
will work under any circumstances, models are used in which the injections of
packets, the status of the edges, and the movements of the observer are assumed
to be under adversarial control. The challenge is to find distributed online
protocols for this case - i.e. protocols performing online decisions that can
be executed locally at every sensor - that have a near-optimal throughput
using a near-minimum amount of energy and storage. Simple protocols with these
properties have recently been developed and analyzed by the PI for specific
cases (such as specific topologies of sensors and a static observer), and the
research goal of the project is to establish analytical and experimental
results for much more general cases.

A broad impact of the project is ensured by disseminating the research results
via lecture notes, conference and journal publications, presentations, and
publications on the Web. Furthermore, sensor networks is a highly
interdisciplinary field. It involves people from many different areas:
integrated circuits, signal processing, operating systems, and theoretical
computer science. The project will stimulate interactions of the PI with people
from these fields, which may lead to exciting interdisciplinary projects in the
future. Finally, since no standards have been set yet for communication in
sensor networks, a potential consequence of the project with high social
benefit will be to provide valuable contributions to future standards.